Workshop on partial differential equations and several complex variables

This award provides funding to help defray the expenses of US participants, especially women, graduate students, postdocs, and junior faculty, in the international "Workshop on Partial Differential Equations and Several Complex Variables" that will be held from August 1-5, 2011, in Serra Negra, Brazil.

This conference will focus on a variety of topics in the area of several complex variables (e.g., the analysis and geometry CR-manifolds; analytic hypoellipticity of differential operators; overdetermined systems of partial differential equations and their applications in geometry), with the theory of partial differential equations providing the unifying theme. All of the topic areas cited in the proposal are central to analysis and extremely active subjects of current research. The format of the meeting is such that young people will have ample opportunities to speak and be otherwise engaged in the various conference activities, especially in the mini-courses that will be offered by Jeff McNeal and Loredana Lanzani.